1999 Language Engineering Workshop for Students and Professionals: Integrating Research and Education (WS99)

IIS-9820687
Jelinek, Frederick; Khudanpur, Sanjeev & Byrne, William J.
Johns Hopkins University
$500,000 - 12 mos. in FY99

1999 Language Engineering Workshop for Students and Professionals: Integrating Research and Education (WS99)

This is a one-year standard award. Automated systems that interact with human users in spoken and written communication will greatly enhance productivity and program usability. These systems will allow friendly access to information services and are essential for people with disabilities, or for accessing databases while performing intricate tasks. Unfortunately, current technology is inadequate for the tasks at hand, and there is a need to make progress. The numbers of available personnel trained in the field must be vastly increased and solutions to long standing problems must be found. At this time, relatively few universities educate students capable of performing the required tasks. Leading professionals are scattered in various industrial, adademic, and governmental institutions, often duplicating each other's work. A six-week workshop on language engineering will be conducted in which mixed teams of leanding professionals and students would fully cooperate to advance the state of the art. The professionals would normally be university professors and industrial and government researchers working in widely dispersed locations. Graduate and undergraduate students will join these teams. The participation of undergraduate students is intended not only as an educational opportunity but also to broaden the appeal of the language engineering field amongst students considering graduate studies.